Ocean Acidification - Collaborative Research: Measuring the kinetics of CaCO3 dissolution in seawater using novel isotope labeling, laboratory experiments, and in situ experiments

Ocean acidification by anthropogenic carbon dioxide (CO2) emissions to the atmosphere will ultimately be balanced by sedimentary carbonate dissolution. The time constant for this reaction, however, is ca. 6,000 years. So, in the coming decades, the ocean's response to CO2 uptake will be based on the kinetics of supply and removal, not on the thermodynamics of the system. Unfortunately our understanding of the basic rate law for carbonate dissolution in the ocean is lacking. The order of the rate law is still argued to be anywhere from 1 to 4.5; this range represents a major difference in the sensitivity of the system to small changes in saturation state. The relative importance of aragonite vs. calcite dissolution, the influence of magnesium content in the minerals, and the sign of the role of organic matter are all still unknowns in the modern ocean. Of course, a truly useful rate law would be able to combine the relative importance of all of these factors into a predictive rule for how dissolution will respond to ocean acidification.

In this study, researchers at the California Institute of Technology and the University of Southern California will address this problem with a novel set of laboratory and in situ experiments that use carbon-13 (13C) tracer labeled biogenic carbonates to measure the dissolution rate under a wide range of saturation states. They will assemble a set of rules that will govern carbonate dissolution in sinking particles and in marine sediments. This will require two sub-projects. First, they will culture several different species of biogenic carbonate producers in the lab under the influence of a strong 13C label. With enrichments of around 30,000o/oo in the calcium carbonate (CaCO3), they will measure the change in dissolved inorganic carbon-13 at several time points over 1-2 weeks in specially built high-pressure reaction chambers. The construction of a prototype chamber is completed and it provides the means, for the first time, to control carbonate saturation state by changing seawater chemistry, pressure, and temperature independently. Experiments with pure 13C labeled inorganic CaCO3 will provide the inorganic reference frame for the biogenic carbonate results. Secondly, to check the lab-based rate data, they will also use labeled biogenic particles in a simple Niskin bottle based reactor that will be deployable on regular hydrowire. The accumulation of 13C in the Niskin dissolved inorganic carbon over 1-2 days will provide an initial rate that is directly comparable to the more extensive laboratory study on the same sorts of materials. Using the San Pedro Basin as a test bed for these in situ experiments will sample a range of saturation states in a series of 3-day cruises. This high-sensitivity approach should allow the team to unpack the various components of carbonate dissolution in seawater under rising CO2 concentrations.

Broader Impacts. Producing a better rate law for carbonate dissolution will have broad implications for the fields of marine chemistry, marine biology, paleoceanography, and for potential societal response to ocean acidification. This rate law sits at the heart of the marine carbonate cycle. In addition, this work will benefit at least two graduate students and promote US-Israel collaborations via the inclusion of Jonathan Erez and his students. The specific involvement of underrepresented high school students in scientific/oceanographic research is built into the efforts of this project as well as ongoing efforts by both PIs to communicate their science to a broad array of non-scientific audiences.